Jackling Institute/Jackling-2

The University of Missouri at Rolla will initiate a one-week, residential and commuter, Young Scholars project in Engineering Technology for 120 students entering the 12th grade. Students attend a one-week program (40 students/week for three consecutive weeks in June) designed to present science and engineering careers relating to minerals, materials, energy, and the environment. Twenty students from this group are then selected to return for an additional three-week research experience to be conducted in August, with the particular discipline of the research being selected to match student interest.